Capacity Building in Information Assurance at Penn State University

This multifaceted project increases Penn State's capacity in producing high quality information assurance and computer security professionals. In particular, the curriculum development project adapts and implements exemplary educational courses through partnerships with other CAE institutions. The hacking lab project enhances the in-classroom technical experiences of students and faculty, develops exemplary IA lab tools and experiments, and integrates research and education. The internship program enhances the work environment technical experiences of students (and faculty) through internship experiences, close interaction with computer security experts, and partnerships with governments and industries. The PGSIT project initiates Penn State's effort in K-12 education in IA.